Flow of Macromolecules Through Microporous Membranes

This project examines the transport of polymer chains within porous media focusing on systems where the mean chain dimension is comparable to or exceeds the pore size. A solution of high molecular weight polymer is forced by pressure through microporous membranes; polymer is larger than the pores and hence will not pass through the membrane at low throughputs. However, at higher solvent flowrates the polymer chains can deform and some of them will enter the pores. The dependence of polymer rejection on solvent flow rate will be measured and these results will be correlated with molecular properties of the polymer. Successful completion of this work may contribute to an understanding of the deformation of polymer chains in converging solvent flow fields, as well as provide insight into separation of polymeric materials by ultrafiltration. Additionally, adsorption of a polyelectrolyte onto the surfaces of a porous membrane will be studied and transport rates of solvent and other small molecules through the partially blocked pores will be measured. This work also explores the feasibility of creating membranes, modified by adsorbed polymer, whose permeability can be controlled by selectively changing solution properties.